Mathematical Science: Numerical Methods for the Equations ofRadiation Hydrodynamics

This project is concerned with the development of efficient and accurate numerical methods for the solution of the equations of radiative hydrodynamics. A successful conclusion to this project will have an impact on computations in astrophysics, chemically reacting flows, and flows with strong body forces.